Designing an Integrated Framework for Genetics Education to Develop Innovative Curricula and Assessments

Michigan State University is developing a model for integrating best practices in technology-supported instructional design and formative assessment for genetics instruction in upper elementary, middle and high school. The project partners with an urban school district in Texas and a suburban school district in Michigan. The objectives are: (1) to articulate a detailed standards- and research-base conceptual framework for describing students' conceptions of genetics and how students develop a full understanding of genetics across grade spans (upper elementary, middle and high school); (2) to develop innovative instructional materials and embedded assessments that provide richer information about students' conceptual understanding of genetics and help practitioners make decisions about what to do next in instruction; and (3) to examine the implementation of these instructional materials and assessments to investigate students' understanding of genetics concepts.

Using the Web-based Inquiry Science Environment (WISE) 4.0 platform (a technology-rich learning environment), the project is developing a 5-week elementary, middle, and secondary school curriculum models that scaffold and model scientific practices, enable students to interface with real-world problems, provide opportunities for students to make connections between visible phenomena and underlying genetic processes, and promote student monitoring and reflection on their learning. Each module will include animation- and stimulation-based contexts in WISE to provide rich occasions to press for building and developing reasoning and explanations. To promote teachers' use of student responses in formative ways, the materials will offer clear guidance about how to make evidence-based instructional decisions as well as provide options for contingent instruction activities that can be used to address persistent or common non-normative ways of reasoning.

The research offers generalizable approaches on the principled design of embedded assessments in WISE 4.0 and on using these assessments formatively. A quasi-experimental study employing a cross-sectional and longitudinal comparison design will investigate the development of students' understanding of genetics-related ideas from upper elementary to the high school years.